High Dimensional Mixture Models

The purpose of this project is the development of theory, statistical
methodology, and computational
methods for use in mixture models in high dimensional data. In the
theoretical portion, the investigator
enhances the potential statistical applications of these models by
examining their topographical structure and their relationship to other
high-dimensional methods such as local linear regression and
hierarchical trees. New kernel densities are being constructed by the use
of the idea of
diffusion processes. New methods to assess the important aspects of
identifiability in these models
are under development. In addition to these basic theoretical developments,
the investigator is creating a set of methods designed to fit diffusion
mixture models, and to assess their fit, in high dimensions. A key part of
this methodological development is occuring in computational enhancements.

The statistics community is faced with a great challenge by modern science,
and that is to
develop new tools for scientific inference in the aftermath of the data
revolution. Modern data is potentially high in dimension, and massive in
the number of collected units. The probability models called mixture models
have had a long history of use in describing heterogeneity in data samples.
They are extremely flexible, and provide a compact picture of the key
features of the data structure. Unfortunately, limited theoretical
developments in this difficult area have held back their use in high
dimensional problems. This research project targets a number of the key
difficulties remaining in this area, including the integration of this
methodology with other existing ones, the expansion
of this methodology into new data types, and a better understanding of this
model's structure in
very high dimensions. The methods that arise from these developments are
being turned into computational packages so that they can be used by
scientists.